Improvement of Earth Science Education in the San Antonio Area

This program is designed around the central theme "the history and development of the earth." During the Summer Institutes and other activities which make up the program the links between the various aspects of earth science will be emphasized. Peer teaching, a balance of activities, and a good multiplier effect characterize these Summer Institutes. The earth science content areas to be studied are astronomy, geology, oceanography, and meteorology. Following morning lectures with practical demonstrations and hands-on activities where appropriate, the afternoon laboratory projects designed by the faculty, will aid participants in understanding the course material and provide models which can be used by the teachers in their own classes. This laboratory time also provides an opportunity for "sharing" of activities between participants and for small group interaction with faculty. Field experiences (25% of the program) to provide hands-on experience will be scheduled after studying the relevant subject matter component. The balance is good being approximately (40% lectures, 35% laboratory, 25% field trips). Thirty "original participants" will attend a four-week Institute at the University of Texas - San Antonio (UTSA). Then each of these will co-present, with four other participants and a lead teacher, a workshop based on the materials developed during the Summer Institute. Each of these workshops will enroll 30 - teachers at "cluster centers" around the San Antonio area. They will be conducted in the following academic year. This is peer teaching with a 6 to 1 multiplier effect. Also, follow-up meetings will be held during the following academic year. At these meetings the 30 original participants each accompanied by another teacher who attended a cluster workshop, will report on the pedagogical application of the ideas gained during the course. Workshop participants will come from public and private middle schools of Region 20 - Education Service Center around San Antonio. With this mix of participants and activities, participating teachers will assume significant ownership of the materials developed which will be key to their continued use and improvement of earth science education in the San Antonio area. I recommend a standard award for 12 months of $130,247. The University of Texas - San Antonio is cost sharing an amount of $18,200 or approximately 14%. TPE-8850984 2 If child care is allowed the recommendation is for a standard award of $143,747 for 12 months. The cost sharing of $18,200 represents 13%.//